Type Systems for Secure Programming

CCR 9988491
Smith, Scott
Johns Hopkins University
Type Systems for Secure Programming

Security in language design is a rising concern due to increased
portability of code. Most language-level security mechanisms have
been afterthoughts to language designs. One widely known language
security system is the Java Security Architecture, found in the JDK
1.2. There, access control mechanisms are written as code in the
program itself, and it is difficult to determine what access controls
are actually in place. The goal of this research is to develop a
declarative security architecture for programming languages. In this
project, a novel static type system for guaranteeing safety with
respect to certain security properties at run-time will be developed.
The research consists of two main components,

* a novel static type system in which security information decorates program
types (so-called security access types), and the type system properly
enforces propagation of this information;

* a novel module system which includes security access types as part of the
interface, and for which program linking will entail validating security
properties.

The aim is an expressive, flexible security discipline which allows
static verification that security checks are met, allowing run-time
security checks to be avoided. The advantages of static over dynamic
enforcement of properties forms one of the basic pillars of
programming language design and software engineering: the types
themselves serve as concise readable specifications of program
behavior, and the lack of a class of run-time errors gives more
reliable execution behavior. In the context of secure programming,
"more reliable" directly translates to "more secure". The long-term
aim of this research is a more secure internet.